CAREER: The Role of Self-Regulated Learning in Students' Understanding of Science with Hypermedia

This project focuses on the role of self-regulated
learning (SRL) in students' understanding of science with hypermedia. SRL is
emerging as a significant issue in educational and psychological research. SRL is an active, constructive process
whereby learners set goals for their learning and then attempt to monitor,
regulate, and control their cognition, motivation, and behavior in the service
of those goals. SRL is guided and constrained by both personal characteristics
and the contextual features of the environment (Pintrich, 2000). The focus of
SRL research over the last three decades has been on learners' academic learning
and achievement and has progressively included emphases on cognitive strategies,
metacognition, motivation, and task engagement (for a recent review see Paris &
Paris, 2001). The broad scope of SRL appeals to educational researchers who seek
to understand how students become adept and independent in their educational
pursuits. Whether SRL is viewed as a set of skills that can be taught explicitly
or as developmental processes of self-regulation that emerge with experience
(within a domain, topic, or task), teachers can provide information and
opportunities to students of all ages that will help them become strategic,
motivated, and independent learners. There are, however, several theoretical and
empirical issues that need further research before practical classroom
implications can be put forth. How do students' regulate their own learning when
using a hypermedia environment to learn about complex science topics? Which
processes related to self- and co-regulation do student pairs and teachers use
during collaborative learning of complex science topics with hypermedia? What
kinds of instructional conditions are more effective in fostering SRL? How can
science teachers provide information and opportunities to students of all ages
that can help them become more strategic, motivated, and independent learners?
Can SRL be taught explicitly as a set of skills or is it a developmental process
that emerges from experience (within a task, topic, or domain).This NSF Career project will explore these
questions through research that forges new directions in the area of students'
self-regulated learning of two complex science topics (the circulatory system
and ecological systems) with hypermedia environments (CircSysWeb and RiverWeb).
In doing so, the research goals will be: (1) To scale-up research on
self-regulated learning across developmental levels and contexts; (2) To examine
the role of self- and co-regulation during individual and collaborative learning
with hypermedia environments; (3) To examine the effectiveness of
co-construction of goals (between teacher and students) during learning of
science with hypermedia environments; (4) To examine the effectiveness of
strategy instruction training in fostering students' self- and co-regulated
learning with hypermedia; and, (5) To examine the effectiveness of adaptive
web-based hypermedia environments in detecting, modeling, and fostering
students' self- and co-regulated learning of science.